The Reactivity of Subcolloidal Iron Clusters

The enormous advances in methods to synthesize nanometer-sized Fe(III)-
hydroxide clusters can answer questions about the Fe(III)-solid surfaces that have
puzzled geochemists for decades. These questions include: (i) Which bridging hydroxyls
exchange oxygen isotopes with bulk solution via what rate laws? (ii) Where do electronexchanges
proceed? (iii) Can our computer models predict this chemistry? (iv) What
level of accuracy, that is, expense, is needed?
We propose a set of projects involving molecular clusters that have many Fe(III)
or Al(III) atoms linked together with sets of hydroxyl bridges. The family of
homologous molecules (Fe17, Fe19, Al13 and Al15) have a similar structural core but
varying numbers of Al(III) or Fe(III) metal centers. Clusters can be chosen that have, or
do not have, bound water molecules. The fact that Fe(III) and Al(III) clusters can be
synthesized that are structurally similar is an enormous experimental advantage. The
Al13 and Al15 clusters are diamagnetic and allow NMR experiments, including 17O, 27Al,
13C and 1H. Even the Fe(III) clusters allow probing via the methods of isotope-exchange
and paramagnetic NMR.
The projects that we propose are to: (i) Determine the reactivity of different
oxygens in the clusters via isotope-exchange experiments; (ii) Evaluate the dynamics in
the 'adsorbed' organic ligand that makes the clusters stable in water, including the
residence times in the bound state; and particularly: (iii) Evaluate the tools needed to
predict reactivities in Fe(III)-hydroxide solids and molecules. This last point can be
restated: 'What level of quantum sophistication is required to obtain a structure accurate
to better than 0.05 A? Better than 0.01 A'? In previous studies, we found that a change in
bond length of 0.03 A changes the adjacent hydroxide oxygen-isotope exchange rates by
a factor of i-103. 'How sophisticated must our methods of treating electron correlation
be?' 'What constitutes an adequate basis for wave-function representation?' and: 'What
are the most promising types of computationally inexpensive methods that can yield
hidden reaction pathways in systems that are sufficiently large to be geochemically
relevant?' How does one construct a useful reduced representation of electronic
structure? The molecules allow a fairly dense progression from small to large
(monomers, dimers, tetramers, Al13, Al15, Fe17, and Fe19 clusters) and this series provides
a way to systematically extrapolate accurate calculations that are possible on small
molecules to more approximate methods needed for extended solids surfaces and
geochemistry.
The implications of this research extend well beyond Earth science. This research
will be used by many disciplines, including colloid chemistry, nanoscience, and medicine
(metalloproteins such as ferritin resemble these clusters). Also, enrollment at UCD draws
disproportionately from the high population of new immigrants to the United States, so
these funds bring nontraditional but highly talented students into the Earth Sciences. We
train a diverse group of students in the latest techniques of quantitative geochemistry and
we blur the distinction between Earth science and inorganic chemistry, which is
important for the training of fearless young geochemists.